Advancing Science and Mathematics Educational Research Through Quantitiative Studies of Education Policy and Practice

The purpose of this proposed project is to provide both research and training for beginning researchers interested in conducting statistical analysis of educational topics. This proposal represents a continuation of an AERA project initiated in 1990 to support small research projects, dissertation grants, fellows, and special projects about the statistical analysis of education surveys created by the National Center for Education Statistics or the National Science Foundation. The AERA Grants Board is made up of leading statisticians and researchers from major US universities and from the administrators of the AERA who review small research proposals 3 times a year. The program also supports an annual conference for dissertation grant awardees and small grant recipients to enhance the discussion of the purpose and techniques of statistical analysis. The investigators will prepare a summary of the results of the grants awarded by the program that have achieved publication.